Support for SEDI

This is a proposal to provide support for SEDI, and IUGG Union Committee to Study the Earth's Deep Interior. The principal objective of SEDI is to foster and facilitate cooperative studies of the structure, composition, energetics and dynamics of the Earth's deep interior, particularly the lower mantle, the core and the core-mantle boundary region. The support includes (a) participant support costs for US scientists to attend the third SEDI Symposium to be held in Mizusawa, Japan, July 6-10, 1992, and (b) administrative support of the SEDI secretariat, or the period 1992 through 1995.